Distributed Memory Hydrodynamic Semiconductor Device Simulations Using Finite Elements (Postdoctoral Research Associateship in Computational Science and Engineering)

Carey 9405084 This research deals with the analysis and numerical solution of nonlinear systems of hyperbolic transport equations. The equations are to be solved using a generalized Galerkin finite element method, with additional numerical dissipation for enhancing stability and capturing solution discontinuities.